Continuation of Support for Industry/Universtiy Cooperative Research Center for Integrated Pest Management

ABSTRACT EEC-9612468 STINNER Management of pest species in agricultural environments has become highly technical since the introduction of synthetic chemicals as pesticides. The judicious use of these chemical tools, integrated with cultural, mechanical and biological controls to minimize effects on the environment is an integral part of Integrated Pest Management. (IPM). The North Carolina State University's Industry/University Cooperative Research Center for Integrated Pest Management (IPM) continues to meet the criteria of the I/UCRC Program. The Center helped start the Global IPM Informational Database Management system during its first five years as an I/UCRC. This has grown into a national program that is an outstanding accomplishment. The research of the Center will continue to address: 1) Impact of pest management on environmental quality; 2) Crop loss assessment and economic threshold determinations; 3) Genetic engineering for improved pest management; 4) Improved understanding of pest biology and ecology; 5) Pesticide resistance detection and management; and 6) Development of communications and decision support systems for IPM.